CAREER: Stochastic methods in chemistry and biophysics

Prof. Frank L. Brown of the University of California Santa Barbara is supported by this CAREER award to develop a dynamic elastic model for lipid bilayers which is used in simulating complex biochemical and biophysical phenomena. The research involves the development of Fourier Space Brownian Dynamics, or FSBD, for stochastically evolving these surfaces. This method will allow the modeling of cellular motility and membrane protein diffusion. A second project supported by this award is the development of theoretical and computational approaches to single molecule spectroscopy. The results of these simulations are used to interpret photon counting experiments.

This research has a broad impact on the field of biology, particularly the biophysics of membranes. Professor Brown is involved with the Computational Science and Engineering program on the UCSB campus and is working to incorporate computational chemistry into the program. Courses in atomic and mesoscale simulation techniques are being developed by Professor Brown as part of this project.

This project is supported by the Theoretical and Computational Chemistry Program in a co-funding arrangement with both Molecular Biophysics of Molecular and Cellular Biology and the Materials Theory Program of the Division of Materials Research.